Mathematical Sciences: Complex Analysis and Geometry in Multidimensional Domains

DMS-9500916 Boas/Straube The principal investigators will study the interplay between the geometry of the set of infinite type points in the boundary of a pseudoconvex domain and the regularity of the d-bar-Neumann problem. They will also investigate geometric conditions equivalent to compactness of the d-bar-Neumann operator. The techniques to be used combine ideas from function theory, geometry, partial differential equations, and functional analysis. Several complex variables arose at the beginning of the century as a natural outgrowth of studies of functions of one complex variable. It became clear early on that the theory differed widely from its predecessor. The underlying geometry was far more difficult to grasp and the function theory had far more affinity with partial differential operators of first order. It thus grew as a hybrid subject combining deep characteristics of differential geometry and differential equations. Many of the fundamental structures were defined in the last three decades. Current studies still concentrate on understanding these basic mathematical forms.